Single Molecule Detection and Spectroscopy as a Probe of theLocal Environment

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, the Atomic, Molecular, Optical, and Plasma Physics Program of the Physics Division, and the Office of Multidisciplinary Activities of the Directorate for Mathematical and Physical Sciences, Chemla will use single-molecule spectroscopic techniques as well as single- and multi-photon excitation to explore the photophysical and photochemical properties of single molecules in aqueous solution and close to metallic interfaces. For single molecules under water new immobilization schemes will be developed based on previous work on dry surfaces. The effect of the microscopic structure of surfaces on chemical reactions close to those surfaces will be examined by way of the fluorescence of the reporting molecules. Scanning probe techniques will be utilized to explore the interplay between the relative orientation of a single dipole with respect to the surface and the elementary excitations of the metal. The effects of applied electric fields and local field effects will be studied. These studies are important for understanding the physical and chemical processes involved in biologically important environments. Such a spectroscopic capability as will be developed here has a variety of fundamental as well as practical applications, such as to the development of improved chemical biosensors. It also has relevance to understanding the surface chemistry and physics of materials on a molecular level.